Analysis of multidimensional processes

Problems in two areas of probability are considered. The first
is concerned with uniqueness for the solutions of stochastic
differential equations arising from the areas of stochastic partial
differential equations, measure-valued branching diffusions with branching
and spatial interactions, equations that depend on the past,
and equations corresponding to degenerate elliptic operators.
These are typically infinite-dimensional systems of equations, often
with coefficients that degenerate at a boundary. The second area of
research concerns Harnack inequalities and heat kernel estimates.
An attempt will be made to characterize the Harnack inequality in both
continuous models and ones with jumps. In addition regularity of
solutions to equations associated with non-local operators in bounded
regions will be investigated.

In recent years researchers in mathematical physics, economics, and
mathematical finance have realized that to adequately model real-world
phenomena, the possibility of jumps must be allowed. For example, an
unexpected discovery or unexpected regional conflict might cause a sudden jump
up or down in stock prices. However, some of the very basic questions
about models that incorporate jumps are as yet unanswered. One of the areas
to be investigated is the regularity of such models. A typical question is:
if the initial data is perturbed slightly, is it true that the behavior of
the model at future times will also be only slightly perturbed? There are
similar unanswered questions for certain models that originate in mathematical
biology. In these cases the difficulty is not the presence of jumps, but
the presence of huge numbers of individuals and the possible interactions
between individuals.